Topology of Hyperplane Arrangements

DMS-0105342
Alexandru I. Suciu

This project is centered around a topological study
of complex hyperplane arrangements, with a view towards
finding effectively computable invariants of their complements.
The goal is to decide whether a given invariant is
combinatorially determined, and, if it is, to express
it explicitly in terms of the intersection lattice of
the arrangement. An important role is played by the
jumping loci for cohomology with coefficients in local
systems, and the related resonance varieties.
These varieties have emerged as a central object of study.
They provide deep information about the homotopy theory
of the complement of an arrangement, as well as
a bridge relating various invariants, in often unexpected ways.
Another key role is played by the rational-homotopy
notion of formality, which provides the underlying
explanation for many of the encountered phenomena.
Whenever possible, the study is done in a more general setting,
which includes certain types of subspace arrangements,
both real and complex, as well as certain links in the 3-sphere.
Such a point of view enlarges the range of applicability of the
results, and helps explain what is really peculiar to complex
hyperplane arrangements.

In its simplest manifestation, an arrangement is a
finite collection of lines in the plane. These lines
cut the plane into components, and understanding the topology
of the complement amounts to counting those components.
In the case of lines in the complex plane (or, for that
matter, hyperplanes in complex n-space), the complement
is connected, and its topology (as reflected, for example,
in its homotopy groups) is much more interesting.
The theory of arrangements is a relatively new branch
of mathematics, started in the 1960's with a study
of the classifying space for the pure braid group.
The theory has developed at the interface between
topology, algebra, algebraic geometry, and combinatorics.
Hyperplane arrangements, and the closely related
configuration spaces, are used in numerous areas,
including robotics, multi-dimensional billiards,
graphics, molecular biology, computer vision, and
databases for representing the space of all possible
states of a system characterized by many degrees
of freedom. There are also deep connections between
hyperplane arrangements, knot theory, hypergeometric
functions, conformal field theory, and quantum cohomology.